Symposium on Testing and Verification of Advanced Computational Mechanics Codes

9813850 Ortiz The symposium brings together prominent members of the community with expertise in computational mechanics to review the current needs, trends, and opportunities pertaining to the testing and verification of large-scale advanced simulation codes. Recommendations are made on testing techniques, algorithm analysis, benchmark problems and other useful avenues for assessing the fidelity and performance of computational mechanics codes. ***